CAREER: Development and Applications of Weak Turbulence Theory

DMS Award Abstract
Award #: 0134955
PI: Lvov, Yuri
Institution: Rensselaer Polytechnic Institute
Program: Applied Mathematics
Program Manager: Catherine Mavriplis

Title: CAREER: Development and Applications of Weak Turbulence Theory

Weak turbulence theory provides a broad framework for the study of
steady-state statistical properties exibited by large classes of
weakly nonlinear or weakly coupled physical systems. Within this
framework, the research component of this work will focus on three
fundamental problems in physics: the Garrett-Munk spetrum of internal
waves in the ocean, finite-flux spectra in semiconductors with
applications to semiconductor lasers, and Bose Einstein condensates.
In each case, novel weak-turbulence-inspired techniques will be
developed to compute the stationary energy spectra of the phenomena
under investigation, which will provide an analytic statistical
description of their long-term dynamics. Applications of this work
include environmental aspects of ocean dynamics, semiconductor
manufacturing and increases in laser efficiency, and condensed-matter
physics and materials science at low temperatures. The educational
component includes course development on undergraduate and graduate
level that will incorporate an experimental component in an
undergraduate mathematical modelling course, and a graduate course on
waves and weak turbulence theory.

What do internal waves deep below the ocean surface, semiconductor
lasers, and extremely cold metallic vapors have in common? They are
all very complicated physical systems composed of simple components
that interact weakly. Weak turbulence theory addresses these type of
systems, and precdicts how the energy they contain will behave on
average over long times. The question of how the energy of an
internal ocean wave depends on this wave's length has an elegant
experimental answer pointing to a universal law, but has eluded
theoretical explanation for more than thirty years. This work aims to
provide such an explanation, which will furnish new insights into the
oceanic environment. Semiconductors and semiconductor lasers
manufacturing and operation requires ever increasing efficiency. This
work will explore an improvement that is based on a more efficient way
of delivering energy to the working semiconductors and semiconductor
lasers. Three quarters of a century ago Bose and Einstein predicted a
new phase of materials, the Bose-Einstein condensate, that can only
occur at extremely low temperatures. Finally, six years ago, this
phase was realized experimentally, and the the creators of the
experiment received this year's Nobel Prize. This work will provide a
theoretical explanation of how extremely cold metal vapors settle into
the Bose-Einstein condensate phase.

Date: December 17, 2001